Water in Electronic Structure Calculations: Development of New Methods

9509122 Ichiye While electronic structure calculations of gas-phase molecules is a very well developed field, such calculations for molecules in solation are still in their infancy. This research will incorporate solvent effects into electronic structure calculations of proteins. Simple continuum solvent models are insufficient to describe phenomena such as hydrogen bonding, local dielectric perturbations and phenomena involving separations of only a few water layers. To model the molecular nature of solvation, the approach used here will add a statistical mechanical integral equation theory, previously developed by this group to describe aqueous solvation of globular molecules, into density functional electronic structure methods. %%% While electronic structure calculations of gas-phase molecules is a very well developed field, such calculations for molecules in solution are still in their infancy. This research will incorporate solvent effects into electronic structure calculations of proteins. Electronic structure calculations are very important in computational and theoretical biophysics. For instance, they are important in gaining a fundamental understanding of the structure-function relationships of electron transfer proteins and enzymes. They are also important in the development of potential energy function parameters. ***